Computer Based Simulation of Contruction-Related Activities

9502304 Slaughter The overall objective of the research is to construct a methodology that allows rapid and accurate formulation of a design, construction, operation, or decommissioning procedure so that most of the effort can focus on exploring scenarios and outcomes rather than on the mechanics. The research takes two distinct approaches. First, the research allows the explicit linking of the design process to the fabrication and construction processes. The second approach is to allow an explicit consideration of the set of functional systems (e.g. structural, enclosure, mechanical, finish) within the facility as well as the coordination of the different phases.